ACM Multimedia 2013 Student Travel Grant

This student travel grant supports graduate students enrolled in U.S. institutions to attend the premier conference in the multimedia area, ACM Multimedia 2013. It is a top scientific conference in the area of multimedia, covering latest technical trends, system demos, grand challenges, open source software competition, innovative new ideas, doctoral symposium, and many other innovative activities. Participation in such an event allows students to interact with the leading experts from around the world, learn cutting edge research, develop professional networks, and interact with industry leaders involved in practical applications and technology transfer. The opportunity is broadcast to the broad community and students from underrepresented groups are particularly encouraged to apply.